Computations and Applications of Periodic Floer Homology and Contact Homology in Symplectic Geometry

DMS-0305825
Michael G. Sullivan

Much progress has been made in symplectic geometry, and more
recently contact geometry, since the discovery
of holomorphic curves in symplectic manifolds.
Sullivan plans to continue calculating and applying
two sets of invariants based on these curves:
the contact homology of Legendrian submanifolds
in contact manifolds and the periodic Floer homology of
Riemann surface diffeomorphisms.
The former is a special case of symplectic field theory.
Although symplectic field theory is still not rigorously
well-defined, Sullivan and others have
completed the foundational analysis for their
version of contact homology.
Sullivan will extend this alternative version of contact
homology to other manifolds.
The ultimate goal is to develop a complete obstruction
of Legendrian isotopy classes.
The latter invariant is conjectured to agree with Seiberg-Witten-Floer
homology. This project will develop the foundations
of this theory, as well as broaden the existing set of computations.
The investigator also hopes to work on applications of the periodic Floer
homology computations, addressing the problems of existence
and classification of symplectic structures on 4-manifolds.

Symplectic and contact geometry explain the
physics of certain dynamical systems, such as
the orbits of planets around the sun, the spin of a top, or
the motion of a charged particle in a magnetic field.
Such systems obey the least action principal, which
among other things can mean that their total energy
or momentum must be conserved.
Many symplectic geometers study holomorphic curves,
a reinterpretation of the least action principal,
which has linked together several independently well-developed
mathematical fields such as complex analysis and differential topology.
The study of holomorphic curves has led to other
``physical" results, such as a generalization of
Heisenberg's uncertainty principal.
More recently, these curves are thought to appear in
other areas of theoretical physics, like string theory.